Chemistry and Spectroscopy of Excited State Hydrocarbon Free Radicals

In this project funded through the Faculty Early Career Development (CAREER) Program of the Chemistry Division, Prof. Andrew Cooksy of the Department of Chemistry of the University of Mississippi will investigate and characterize electronic states of a series of combustion related hydrocarbon chain radicals for which the chemistry is likely to differ substantially from the ground state. The excitation energies of these states, their structures as well as their electron distributions will be determined spectroscopically. The radicals C3H, C4H, HC4H2 and HC3O, as well as the triplet states of H2C3 and H2C4 will be produced continuously in a supersonic free jet by a modified version of pyrolysis sources. Accompanying the research activity is a specified education effort appropriate to the development of a full, balanced, academic career. The study of the properties of combustion related free radicals is important in that it provides data and models for the improvement of combustion processes in internal combustion engines as well as in other power sources.